Density-Graded and Texture-Graded Ceramics

9800257 Faber Graded materials, by definition, have properties that vary as a function of position. This project offers a novel means to microstructurally grade the properties of single-phase materials. A recently-developed processing method, gelcasting, in which ceramic powders are suspended in a polymerizable liquid is used to form the material. At the onset of polymerization, the ceramic particles are no longer free to rotate or move in the gel, thus "freezing in" the desired structure. The gelcasting process has a characteristic "idle time" defined as the time prior to polymerization and gelation. Taking advantage of that idle time allows for gradation of the microstructure. The project will use the idle time to grade single phase oxides in two ways. First, graded-density solids will be made by making use of gravity or enhanced settling through centrifugation. It is anticipated that these materials can be configured to have dense, wear-resistant surfaces, or porous, flaw tolerant surfaces, as demanded by the engineering application. Aluminum oxide known for its hardness and chemical inertness is the model graded-density solid. Second, graded-texture solids will be produced by performing gelcasting in a magnetic field gradient. The hexagonal ferrimagnetic, barium hexaferrite, will be texture-graded due to its high magnetic anisotropy. Since its crystallographic texture is coupled to morphological texture, barium ferrite is also expected to have gradients in mechanical properties. The field-assisted gradation technique is applicable to ferromagnets, paramagnets, and ferro- and paraelectrics, the latter in an electrical field gradient. The properties of these solids will be simulated using an object oriented finite element program (OOF) for actual microstructures. The simulation work will be done in conjunction with the National Institute of Standards and Technology. Simulations coupled with experimental findings will form the basis for materia ls design of density- and texture-graded solids. %%% As ceramics are considered for more complex and sophisticated applications, one component must serve several functions and meet seemingly disparate materials requirements. Conflicting materials requirements beg for graded microstructures. Considerable emphasis has been placed on functionally gradient materials in recent years. This project will explore a new method for grading materials and novel gradation architectures, that may provide materials engineers with a low-cost, reproducible method of producing functionally gradient materials. ***